R/V Atlantis Operations

Woods Hole Oceanographic Institution (WHOI) requests funding to support NSF funded scientific research on R/V Atlantis n 2018. The proposed operations will provide access for over 10 NSF Principal Investigators (PIs) to conduct multiple research sea voyages throughout the year. 85% of the 303 day scheduled will support NSF and OOI programs. NASA, NOAA, and ONR will support the other 15% of R/V Atlantis ship time in 2018. R/V Atlantis will enter 2018 on a voyage supporting the Navy's assistance to Argentina in the search for its missing submarine the ARA San Juan. R/V Atlantis will work back from the South Atlantic Ocean to Woods Hole conducting voyages for NSF and NOAA along the way. On departing Woods Hole, R/V Atlantis will work in the Atlantic conducting Alvin and Sentry ops before returning to Woods Hole in the summer. R/V Atlantis will depart Woods Hole in late summer to conduct Alvin and Jason ops in the Atlantic before finishing the year in the Pacific conducting Alvin and Sentry ops for NSF sponsored PIs to the end of the year. R/V Atlantis will then go to dry-dock for a regulatory docking through the first quarter of CY 2019.

These peer-reviewed projects supported by operations on R/V Atlantis in 2018 have been rigorously evaluated for scientific and intellectual merit as an integral part of the NSF grant review and award process. The competitive nature of the award granting process ensures a very high level of intellectual merit. Knowledge gained and the discoveries made by the research programs supported by R/V Atlantis will enhance understanding of the oceans and address a broad range of important scientific questions. The goal of this proposal is to provide funding support to safely and productively operate and maintain R/V Atlantis in 2018 and to ensure it is maintained to support its planned life-cycle. This support is an essential prerequisite for safe and successful scientific missions.

WHOI research vessels provide at-sea laboratories necessary to effectively and safely take science to sea. This community includes senior oceanographic scientists, post-doctoral and doctoral students, graduate and undergrad students as well as engineers, technicians, and teachers. These intellectual endeavors have broadened our understanding and have spurred on new questions and scientific theory. Research supported by R/V Atlantis will be important in understanding the Earth's climate and how it changes over time. In 2018 R/V Atlantis will deploy Alvin, Jason and Sentry to conduct operations in the Atlantic and Pacific Oceans and obtain water column samples in both Oceans. Educational and outreach programs will be featured on these voyages. All of these intellectual endeavors will continue to broaden our understanding of the oceans, stimulate new questions, and confirm scientific theory for years to come, benefiting society at large. Oceanographic expeditions are an extension of university classrooms and are an extraordinary educational experience. Voyages expose participants to new ideas, teach fundamental scientific principles through observation and practice, and inevitably raise questions that stimulate new thinking about how the oceans work. An increased awareness of our responsibility to bring this science into the classroom and to the public has resulted in the development of new avenues to share these scientific findings. The cruise web site concept has effectively reached classrooms with real-time images, data and two-way communication between scientists and students in schools across the country. These efforts have extended the sea-going experience from a handful of participants to thousands of students in classrooms across the country, as well as to the general public. Scientists on WHOI vessels will use this tool to present their data through web-based approaches either at their home institution or through web sites maintained by community organizations. The WHOI web site, http://www.whoi.edu, has pioneered efforts to present the results of research expeditions to the public. Outreach programs continuing in 2018 from WHOI vessels with the Perkins School for the Blind and Disabled represent cutting edge efforts to broaden the experience of conducting research at sea to every American